Evaluation of a Portable Microcomputer-based Laboratory in Sixth-grade Science Classes

Microcomputer-based Laboratories were developed to give students a hands-on learning method and have been shown to improve student performance. Electronic advancements now allow for the research of integrating existing, state-of-the-art, low cost, palm-sized, portable data acquisition equipment into a portable Microcomputer-based Laboratory. The feasibility assessment will be based on two experiments performed by sixth graders. This concept, if successful, could be applied to benefit science and math education at all efforts.